Symposium on Factory Automation and Robotics to be held in New York City on September 9-11, 1985

A three-day symposium on Factory Automation and Robotics will be conducted at New York University in September 1985. The invited spokesmen represent research interests connected with parts handling, computer vision, assembly, locomotion, and robotic software. The aim of the symposium is twofold: familiarize the theoretical and experimental computer science communities with robotics as an important area for future computer science research and provide a forum in which industrial and academic engineers and scientists in robotics interact with scientists in computer and related sciences. Problems posed by industrial applications will provide fertilization across disciplinary boundaries. An audience of 200-300 applied mathematicians, engineers, and computer scientists is sought.